Ninth Winter Workshop on Nuclear Dynamics; Fort Myers, Florida; January 19-24, 1993

The funding will support the attendance of eight graduate students at the 9th Winter Conference on Nuclear Dynamics to be held in Fort Myers, Florida, in January 1993. This series of workshops brings together experts representing the full spectrum of nuclear dynamics, ranging from low-energy reactions at ATLAS, Holifield, and Daresbury through medium- energy collisions at many laboratories to high-energy interactions at AGS, CERN, and RHIC. The workshop proceedings will be published.